Technical Assistance in the Conduct of the Annual Meetings of BRIGE Principal Investigators

Abstract:

The proposers (QEM) are requesting support to provide technical assistance for three annual meetings of the BRIDGE program's PI '. The group is very experienced at providing technical assistance and holding workshops. They will handle all of the logistics needed for a successful PI meeting. A draft of the proposed agenda is included in the proposal as well as evaluation information and its implementation. The proposal well done, very cost-effective and will benefit young investigators and faculty from minority serving institutions (MSI).